Advancing the Multidimensional Partonic Landscape of the Nucleon in the EIC Era

Protons and neutrons (nucleons) constitute most of the visible matter in the universe. Despite significant progress in Quantum Chromodynamics (QCD), the theory describing the strong interactions of quarks and gluons (partons), understanding how nucleons acquire properties such as spin remains elusive. Information about the interactions of quarks and gluons inside nucleons is encoded in multidimensional parton distributions, which describe correlations in momentum and spatial coordinates. The Electron-Ion Collider (EIC) at Brookhaven National Laboratory will provide an unprecedented opportunity to probe the inner structure of matter through scattering experiments. Maximizing the scientific impact of the EIC requires theoretical developments to advance in parallel with the experimental program so that future measurements can be interpreted quantitatively from the outset. The PI will address this need by developing theoretical frameworks for multidimensional nucleon structure studies at the EIC while also contributing to ongoing programs at Jefferson Lab. The research combines theoretical calculations, large-scale numerical simulations of QCD (lattice QCD), and experimental input, highlighting the complementary strengths of these approaches. The PI will also provide training and mentorship for students and postdoctoral researchers at the University of Connecticut and will lead outreach activities designed to attract students to nuclear theory and EIC science.

This research advances two complementary directions in QCD aimed at exploring the multidimensional partonic landscape of the nucleon in the EIC era. The first direction develops perturbative-QCD frameworks for calculating observables sensitive to quark and gluon orbital angular momentum and spin-orbit correlations in high-energy exclusive scattering processes, which are essential for achieving a complete understanding of nucleon spin structure. A key component of this research is the development of the first systematic matching frameworks connecting the small- and moderate-Bjorken-x descriptions of nucleon structure through theoretical constraints and machine-learning-assisted optimization. The second direction develops theoretical methods supporting lattice-QCD extractions of quark and gluon distributions, with emphasis on higher-twist generalized parton distributions where experimental constraints remain limited. To strengthen the complementarity of these approaches, the project develops new reconstruction frameworks that combine model input with physics-informed interpolation in regions where lattice constraints are sparse. More broadly, the research integrates theoretical advancements with both lattice-QCD and experimental programs, ensuring that theoretical predictions directly inform ongoing and future measurements. Together, these efforts establish a theoretical foundation for discoveries at the EIC and inform current and future Jefferson Lab experiments.